Postdoctoral Research Fellowships in Plant Biology

This is an individual award in the Postdoctoral Research Fellowship in Plant Biology Program for 1988. The Fellow will conduct research on "The involvement of mobile genetic elements in the phenotypic variance of virulence of plant pathogens", in the laboratory of Dr. Richard Michelmore, University of California, Davis, California. The award provides training in research in a critical area of plant biology to a promising young scientist. It should help to contribute to the future vitality of the Nation's scientific effort and lead to advances in our knowledge and understanding of the biology of plant systems.